Color-Independent Adjustment of Solar Heat Gain in Animals

Sunlight significantly affects the heat or cold stress experienced by animals in nature. Historically, biologists expected that heat gain from solar radiation was largely determined by an animal's surface coloration (e.g., darker surfaces acquire greater heat loads). Dr. Walsberg has demonstrated that mammals and birds can alter heat gain independently of animal coloration. The current project extends these previous analyses by quantifying the significance of such adjustments for heat balance and energy expenditure of animals in their natural habitats. Three species will be studied: (1) Golden-mantled Ground Squirrels in which different populations differ greatly in coloration but manage to maintain constant solar heat loads, (2) a contrasting case in which populations of House Finches remain similar in coloration across wide geographic distances yet adaptively alter solar heat gain, and (3) the Rock Squirrel which maintains the same appearance over the annual cycle yet substantially increases solar heat gain during cold winter months. This research should improve understanding of the diverse functions performed by the insulating coats of animals. This work will contribute substantially to understanding of the thermal stresses imposed upon birds and mammals in nature as well as the selection pressures affecting solar heat gain, thermal insulation, and visual communication. These studies have potential practical implications because thermal and energetic stresses are important problems in livestock production and because human clothing essentially is an artificial substitute for the fur or feather coats of mammals and birds. Understanding the mechanisms produced by natural selection in wild animals and which adaptively adjust solar heat gain may provide useful insights into properties that would be advantageous from an applied perspective.